COLLABORATIVE RESEARCH: Comparative study of alkenone production and productivity in contrasting surface water environments in the North Pacific Ocean

This proposal is funded to improve understanding of alkenone systematics from the euphotic zones in the North Pacific Ocean. This should lead to a better comprehension of their role as a proxy for SST, pCO2 and productivity.